NSF REU SITE: ASSET: Advanced Secured Sensor Enabling Technologies

This project is a renewal of a Research Experiences for Undergraduates (REU) Site at Florida International University that focuses on research related to advanced, secured sensor-enabled technologies. Undergraduates will work with faculty on research projects to explore new technologies and solutions utilizing sensor networks and protocols, software, and hardware solutions essential to the advancement and practical application of secure sensor technologies. This research theme includes a range of research projects, including adversarial machine learning attacks, efficient plausible deniability systems, resource-constrained multi-dimensional blockchains, vulnerability detection frameworks for securing ubiquitous systems, robust and secure wireless sensing systems for human activity recognition, and leveraging hybrid Li-Fi/Wireless sensor networks for internet of light. Undergraduates will participate in research that combines intellectual merit and technical opportunities. They will have a broad impact in m–health, vehicle platooning, cyberattacks, mobile crowd-sensing, and reduction of bias in data analytics. The program aims to nurture students into STEM research fields through a firsthand experience of an intense, interdisciplinary, collaborative research environment. All activities foster the development of collaborative communication among students and faculty to enhance and accelerate the students’ research skills and learning in the field. If successful, the program will motivate students to continue relevant research careers, build human capacity in STEM research and knowledge, and increase workforce diversity.

This project combines the fields of sensing, computing, communications, and cybersecurity to create, develop, and implement new sensing concepts with innovative and significant knowledge. It pioneers core technologies, supportive algorithms, methods, architectures, and toolkits. The program provides a high-quality scientific and cross-cultural experience to motivated undergraduate students from underrepresented population groups nationwide. It aims to influence their choices about further education and future careers and increase their skills and confidence to pursue these choices. With specific recruiting efforts that target underrepresented groups such as women, minorities, and persons with disabilities, this REU program also aims to increase the diversity of the scientific workforce.